Nanocarbon based Supramolecular Assemblies for Electron Transfer Applicable to Solar Energy Harvesting

In this project funded by the Macromolecular, Supramolecular and Nanochemistry Program of the Chemistry Division, Francis D'Souza of the University of North Texas, Denton will conduct multidisciplinary research on light energy harvesting supramolecular assemblies of carbon nanostructures. This research is focused on three main topics: (1) construction and study of broad band capturing, charge stabilizing 'antenna-reaction center' models, (2) band gap dependent photoinduced charge stabilization in donor-acceptor hybrids comprised of diameter sorted carbon nanotubes, and (3) development of supramolecular donor-acceptor nanohybrids of graphene.

The broader impacts involve training undergraduate and graduate students, disseminating research results through publications and presentations at national conferences, and enhancing research infrastructure through establishing national and international collaborations. The project will advance our fundamental knowledge on utilization of all-carbon based nanomaterials such as fullerene, nanotubes and graphene for photochemical applications and could have significant impacts in the fields of supramolecular chemistry, nanomaterials, nanotechnology and solar energy harvesting devices.